Banawa Grammar in a Pan-Arawan Perspective

9310221 Everett This project is a three-year investigation into the morphosyntactic and phonological systems of the Arawan languages, with special focus on Banaw . It will involve approximately ten months of field work in the Amazon, with six months on Banaw and two months each on Zuruah and Deni. Texts and lexica will be collected and transcribed in each of these villages and further analyzed and processed by the PI both in Brazil and at his home institution. Descriptive and theoretical articles on Banaw phonology and morphosyntax will be submitted within the first two years of the project, followed by a detailed grammar of Banaw to be produced by the end of the final year. The work on Banaw will serve as the touchstone for further grammatical description of Zuruah and Deni and analysis of unresolved grammatical problems in the remaining Arawan languages, Madij , Paumari, Yarawara, and Yamamadi. These studies will enable us to document and describe the basic features of the entire Arawan family, representing the first major study of an entire Amazonian family not of the Tupi or Ge phyla. Moreover, initial studies of these languages by the PI have already shown them to be of great theoretical interest for morphological, syntactic, and phonological theories. Also, this study will include the reconstruction of Proto-Arawan leading, it is hoped to the eventual genetic classification of this entire family. Finally, since Arawan languages are all endangered, this study will also provide an irreplaceable source of information and perhaps stimulate outside interest in the survival of the languages and the pe ople who speak them. '| '| '| '| '| '| '| '| " # $ % & '|| ' ( ^ '| ^ '| ^ '| ^ '| ^ '| ^ '| ^ '| ^ ^ '| ^ P ^ '| ^ ^ '| ^ ^ '| ^ ^ '| ^ '| ^ '| ^ '| ^ '| ^ '| " ^ # ^ $ ^ % ^ & ^ '|| ! ! F ( Times New Roman Symbol & Arial " h E E D A abstract Deidre Renee Burton Deidre Renee Burton